Electrophilic Attack on Coordinated Ligands Involved in Catalysis by Organometallic Complexes

This award by the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports the work of Professor Jack R. Norton at Columbia University to address several areas of homogeneous, organometallic catalysis, specifically: a) electrophilic attacks on metallaaziridines and metallaoxiranes, b) the quantitative measurement of ligand binding to constrained geometry zirconaziridines, c) the enantiofacial selectivity of ionic hydrogenation reactions, and d) zirconium/aluminum transmetallation. Each of these studies advances the fundamental understanding of highly relevant and industrially-important transformations. Professor Norton will continue to educate and train graduate students in detailed mechanistic studies. Undergraduate students in the NSF-sponsored REU program at Columbia University will also participate in the research. Professor Norton will serve as co-Program Chair for the 2008 Mid-Atlantic Regional American Chemical Society meeting.